CAREER: Flow-Induced Instability in Rotating Machines: A Nonlinear Systems & Control Perspective

Abstract:
Rotating machines based on fluid-film journal bearings are susceptible to
flow-induced instability, which are caused by the mechanical-fluid flow
dynamic interaction in the rotor-bearing system. Although flow-induced
instability was discovered 80 years ago, it still remains an unsolved
problem. This is indicative that the two most fundamental questions remain
without definite answers: Can operating conditions that cause flow-induced
instability be accurately predicted? How can flow-induced instability be
mitigated? The essential difficulty of the problem is flow-induced
instability is a highly nonlinear, coupled phenomenon. The PI believes
systems & control researchers can bring a fresh perspective to the problem
through a systems theory-based approach. To that end, the research
objectives of this project are: i) develop models that predict the nonlinear
mechanical-fluid flow dynamic interactions, ii) exploit stability analysis
tools for nonlinear systems to better characterize flow-induced instability,
iii) conceive an innovative sensor/actuator paradigm for controlling the
instability, and iv) synthesize nonlinear feedback controllers.

LSU, like many schools, has systems & control faculty and students
throughout several engineering departments. However, LSU is unique in that
its Math Department is one of the few in the nation whose main focus area is
mathematical control theory. To take advantage of this strength, LSU is in
the process of creating a Systems & Control Group that will comprise four
Engineering departments and the Math Department. The educational plan of
this project will be a key component in this effort. The plan will include
four activities aimed at engaging a diverse community of students, promoting
cross-disciplinary interactions, and increasing the ethnic/racial diversity
of students attracted to the field: i) development of a much-needed control
laboratory course, ii) development of a systems & control "tune-up" workshop
for graduate students, iii) involvement and mentoring of minority students
through collaborations with a local HBCU, and iv) development of a systems &
control summer camp for middle and high school students.

This research will attract the interest of researchers in the areas of fluid
mechanics, tribology, and systems & control alike. The proposed activities
will advance the state-of-knowledge within and across these fields by
introducing innovative bearing concepts and new control design tools for
uncertain nonlinear systems and infinite-dimensional systems. The broader
impacts include opportunities for minority students; outreach towards
secondary education; broadening the accessibility of systems & control to
students across campus and across the state; and dissemination and
technology transfer via the activities and industrial partnerships of the
Center for Rotating Machinery under establishment at LSU.